U.S.-Czechoslovak Cooperative Science Program Review

NSF representatives met with counterparts from the Czechoslovak Academy of Sciences for review of joint activities during first year of the U.S.-Czechoslovak Cooperative Science Program. In addition to management overview, discussions featured university-based chemistry research as an illustrative area for balanced and mutually beneficial projects.